Measures of Dependence and Model Selection in Multiple Regression

Measures of Dependence and Model Selection in Multiple Regression

Kjell A Doksum, DMS-0505651

Abstract

The investigators approach the dilemma that estimation of curves and
surfaces such as the conditional mean is virtually impossible with high
dimensional data by focusing instead on the estimation of measures of
dependence between a response and a set of covariates. These measures of
dependence take the form of signal divided by noise. They are used to
select the subset of covariates to include in the model, and to choose
tuning parameters. The signal measures the strength of the dependence of Y
on a set of covariates. The noise is a standard error, that is, an
estimate of the standard deviation of the estimated signal. It will be
small when too many variables are included in the model and when the
tuning parameter sacrifices precision for smaller bias. Choosing variables
and tuning parameters that minimize signal to noise leads to procedures
that converge at the traditional root-n rate. The investigators use
asymptotic and Monte Carlo methods to investigate the properties of such
procedures. They also relate them to traditional model and tuning
parameter selection procedures and compare traditional procedures with the
signal to noise approach.

The last few years have seen the establishment of large databases'
containing a large number of variables that are to be related and
compared. A good example is the data produced by the human genome project
where a great number of genes need to be considered as possible
contributers to a certain disease. Dealing with a large number of
variables is difficult because many of them will contribute variability
(noise) that may drown out potential interesting relationships (signals).
The investigators approach this problem by using general flexible model
equations to represent important relationships between variables. Then
variables and aspects of the equations are selected to minimize the ratio
of signal to noise. This procedure automatically weeds out the variables
that contribute mostly noise and selects an equation that emphasizes the
signals present in the data.